Oceanographic Instrumentation

The Moss Landing Marine Laboratory of San Jose State University will acquire several items of ocenaographic instrumentation to placed in a pool of shared use equipment. This equipment is maintained for use on or in association with the R/V POINT SUR, a research vessel owned by the NSF and operatate by the laboratory. A substantial part of the ship's operating schedule during 1991 is in support of NSF.sponsored research projects. The instrumentation will also increase the capabilities of the ship and of the University to support research and engineering activities. The instrumentation includes: .A pc computer system for shipboard data management that is essential for real.time acquisition and display of large data sets, .A six.pen color plotter for displaying processed data on board ship, .A precision temperature and conductivity sensors for improving the capabilities of the CTD system, .remote readout of navigational system for main science laboratory, and .triple point of water cell for use in calibrations and high precision chemical analyses at sea. The instrumentation described above will increase the capability of the institution to support NSF.sponsored research and engineering projects.